Large-Scale Structured Optimization: Convex Relaxations and Gradient Methods

Optimization problems arise in signal/image denoising,
compressed sensing, sensor network localization, multi-task learning, data
mining/classification, are large-scale, nonlinear, but highly structured.
An effective solution approach is to approximate the problems by
convex relaxations that are computationally tractable and inherit the
structures of the original problems. Specialized computer algorithms
are then developed to exploit the structures and
efficiently solve the convex relaxations in real time.
The investigator and his colleagues/students study the accuracy of
different convex relaxations (i.e., how well they approximate the
original problems) when data may be noisy, and develop new computer
algorithms that are more efficient in theory and in practice.
This includes coordinatewise and incremental gradient algorithms,
possibly accelerated through extrapolation.
Complexity and convergence rate are studied, as well as
computer implementation and testing.
Thus the twin topics of approximation by convex relaxations and
algorithms for convex relaxations are integrated in their development.

Measured data, from satellite images to biological images to stock indices
to internet queries/usage, are inherently noisy and large size.
How to process such large noisy data and extract key
features/patterns is a major challenge, with important applications to
image restoration/denoising, economic forecasting, pattern recognition,
data classification, etc. In the proposed research, parametrized
mathematical models of the underlying data generating process are
formulated and the parameters are tuned by specialized computer algorithms
to optimize the model's predictive power. The latter is achieved
by optimizing a combination of the model's goodness-of-fit to data and a
measure of model's simplicity. This is motivated by Occam's Razor
principle that the simplest is the best (in particular, for identifying
underlying patterns and trends). For example, a 1 Mega-pixel
noisy image might be modeled by a weighted sum of 1000 "elementary"
images from a dictionary. The computer algorithm then finds weights
that are sparse (i.e., few nonzeros) and
fit the model closely to the noisy image (say, in a least squares
sense of the pixel values). Predicting
people's behavior based on past data is another
example, such as the Netflix prize for predicting movie rating which
has a training data set of over 100 million ratings from over 480 thousand
people. Owing to the large data size (and, in some cases, a need to
process the data fast and in real time) and possibly high-dimensional
parameter space, specialized algorithms based on new techniques (e.g.,
work with small chunks of data or small number of parameters at each time)
need to be developed. This is the aim of the proposed research.